An acoustic wave cytosensor system for living cell study

It has been recognized that living cells represent biologically evolved systems possessing all the
attributes of smart materials. In some sense they represent the ultimate smart material. The major
challenge in using living cells as highly sensitive selective and reliable sensors arises on how to transduce
the biological changes of the cells under specific conditions into quantitative (or measurable) physical
parameters. In this project, we propose a three-years research effort to develop a Love-mode surface
acoustic wave (SAW) biosensor that can be used to quantitatively probe the behavior of living cell
attachment, spreading, and growth kinetics under various biological conditions. The ultimate goal is to
demonstrate that the Love-mode SAW device can provide an electromechanical mechanism for high
sensitive signal transduction that allows us to access the cells that attach on the surface of the device as
the biological element in this living cellLove-mode SAW biosensor system.
The specific aims of this project are: 1) To design, modeling and characterize highly sensitive Love-
mode SAW devices; 2) to develop a SAW sensor system consisting of a SAW sensor array, a mini-
incubation system, and a microscope system; and 3) to show the functionality of this novel sensor system
by investigating adhesive/contractile activities of human tendon fibroblasts. This project will involve
modeling, design, fabrication, characterization, and biological evaluation of a novel cytosensor system.
Broader Impact of This Project:
When completed, this project will provide a novel sensor system that will be capable of
simultaneously measuring multiple samples with a high degree of sensitivity. This study will also have
substantial impact on the current biosensor research and development, and will greatly promote the use of
living cells as transduction devices. The novel sensor system will be a powerful tool to study cell
biological events in a real-time, quick, easy, quantitative, and high throughput fashion, and will have wide
potential applications not only in biomedical research but also in monitoring environmental contaminants,
drug screening and efficacy testing, bacteria and virus testing in the food industry and for anti-
bioterrorism applications.
The education aspects of this program will include interdisciplinary research training of both graduate
and undergraduate researchers; hands-on research training opportunities for K-12 students in each
summer semester through the Pitt Engineering Career Access Program (PECAP); and summer research
training for undergraduate students from underrepresented groups through Summer Engineering Academy
(SEA) program coordinated by the Diversity and Minority Engineering Programs. The research activities
proposed in this project will be incorporated into new courses for both undergraduate and graduate
student as advanced topics.